Continuous Micro-Sorting of Complex Waste Plastics Mixtures via Liquid-Fluidized Bed Classification (LFBC) for Waste Minimization and Recycling

The liquid-fluidized bed classification (LFBC) approach will be investigated using a laboratory facility and numerical simulation. LFBC can be employed for simultaneous separation of a number of plastic particle species of various sizes, densities and shapes. The solid particles may be either lighter or heavier than the liquid. Flow visualizations, measurements of dispersion coefficients and separation performance will be performed in a vertical column. Step temperature variation of the carrier liquid will be tested in order to improve particle segregation. A predictive numerical model of system performance will be developed. The research results will form the basis for design of liquid fluidized systems for sorting and recycling processes. If successful, these processes will offer a low-cost, environmental benign technology for waste minimization.